Conference Proposal in Support of Young Investigators

The investigator and his colleagues study problems in the overlap
of algebraic geometry and commutative algebra. A major goal
is to understand the structure of minimal free resolutions
of homogeneous ideals, particularly those defining
zero dimensional schemes. Ideals of interest range from ideals
of fat points (motivated by their intimate connections to questions
about linear systems on projective varieties),
to ideals of generic forms (work on which is closely connected to
work on the Weak and Strong Lefschetz properties
for Artinian algebras, and, via Matlis duality, to work on
fat points), to ideals whose quotients are Gorenstein rings (and
hence involve problems on arithmetically Gorenstein subschemes
of projective space, and Gorenstein liaison). This broad range of
methods and motivations is a significant hurdle that young and
future researchers must overcome to do productive work
in this area. This grant aims to advance the training and career
development of young investigators and graduate students by providing
travel support to attend and interact with leaders in the field at
an international conference addressing the research cited above.

Computational issues underlie much of this research, and machine
computation is both an important tool in the research described
above and the object of some of this research. However, work in this
area can easily outrun the capability of any conceivable computer, so
theoretical studies are essential not only for understanding the results
of machine computations, but to achieve results beyond the reach of brute
force computation. This is, for example, a significant issue for applications
of the research described here to interpolation. Large data sets are a
common feature of modern life, whether in science, technology or business.
Such data sets often involve functional relationships among various
variables. Among the most tractable functions are the polynomials.
If one wants to model relationships with polynomials it is helpful to know
theoretically how complicated the worst case such polynomial might be
(as measured, say, by degree), whereas it might be expensive or impossible to
determine this directly. Such theoretical results about polynomials
are what researchers aim for in studying minimal free resolutions
of homogeneous ideals.